Support for Student Travel Awards to the 11th International Conference on Secondary Ion Mass Spectrometry, SIMS XI

This award from the Analytical and Surface Chemistry Program of the Division of Chemistry provides partial support to enable the participation of five or more graduate students at the 1997 Secondary Ion Mass Spectrometry (SIMS) Meeting. This is a biennial international meeting and represents the largest international forum for dissemination of information on SIMS. Students will be invited to present their research. The meeting is held under the auspices of the American Society for Mass Spectrometry. Scientists from industry, government and academic institutions are attracted to the program and will provide students with broad exposure to all aspects of SIMS. Topics will include the following: surface analysis, developments in instrumentation, depth profiling, semiconductor applications, metallurgical and geological applications, and fundamentals of sputtering. This award enables participation of graduate students in the 1997 Secondary Ion Mass spectrometry (SIMS) Meeting. The conference provides a broad view of scientific activities involving SIMS.